Investigation of the Cause and Effects of Fires Following the Loma Prieta Earthquake

This project focuses on lessons that can be learned following the October 17, 1989 Loma Prieta Earthquake. The objective of the study is to conduct research on the cause and effects of fires initiated by the Loma Prieta earthquake. Specifically the following will be done: o Compile post-earthquake fire statistics in terms of type (electrical, gas or others) and correlate these statistics with the regional earthquake intensity (acceleration) data of the earthquake. o Conduct analytic studies to evaluate the chain of events leading to a fire after an earthquake, investigate the cause of fire and establish the probability of fire development in terms of a given earthquake intensity. o Use the Loma Prieta data and the analytic studies to develop risk of fires associated with future earthquakes and to investigate the design implementation of the calculated risk for hazard mitigation purposes. //